Support for DPOLY Short Course on Polymer Glasses. APS March Meeting, 2015

TECHNICAL AND NON-TECHNICAL ABSTRACT
Funds in the amount of $4,000 are requested to provide for partial support (travel, registration) for approximately 10 junior faculty, post-docs and students to attend the day-and-a-half TDPOLY Short Course on “Polymer Glasses” to be held Feb. 28-March 1, 2015) under the auspices of the Division of Polymer Physics (DPOLY) of the American Physical Society (APS) in conjunction with the Society’s March 2-6, 2015 meeting in San Antonio, Texas. The purpose of the short course is to provide an advanced survey of the present state of knowledge of polymer glasses. It is designed for advanced graduate students, faculty and industrial researchers who are working in the general area of polymer physics and who have a need to deepen their understanding of glass-forming polymers and their extensive applications.